A Fundamental Study of Sampling Disturbance Effects on the Behavior of Soft Cohesive Deposits

The proposed work will treat the soil sampling process as a strain-controlled problem for predicting strain histories (or paths) followed by soil elements during the push sampling. Analytic framework together with complementary experimental measurements, will be utilized. Analytic investigations will be performed to determine the soil deformations and changes of stresses and pore pressures taking place during and after sampling of soft, saturated cohesive deposits. Parametric studies will be carried out to quantify influence of various factors which contribute to sampling disturbance. Experimental investigations will be performed in the laboratory to evaluate and validate analytic predictions.